NANOSCALE: MicroInstrument for Rapid DNA Sequencing Via Nanopores

Abstract
CTS-9986530
Scott Collins, U of CA Davis

This exploratory effort is focused on the development of a high-speed DNA gene sequencing device. The sequencer is based on electrophoretically pulling single-stranded DNA through a nanopore 1-3 nm in diameter. As the individual nucleotides traverse the nanopore, they block, and therefore, modulate the current through the pore. The magnitude of the current modulation is a function of the chemical composition of the nucleotide base, i.e., base sequences may be determined by their characteristic current signatures. The key aspect of this exploratory effort is the feasibility fabrication of the nanopore by anodic dissolution of silicon in HF, e.e., porous silicon. The nanopores will be active component in an integral microdevice design to electrically address the nanopore with sense electrodes and data acquisition circuitry. DNA transport and detection through these pores will be demonstrated.